RIA: Subspace Fitting Algorithms for State Space System Identification

This proposal will explore the connections between the well- understood problem of emitter localization using an antenna array and the less studied problem of state space system identification